Experimental Investigation of the Rheology of Partially Molten Quartzo-Feldspathic Aggregates at Crustal Temperatures and Pressures

9406238 Green The PIs will perform a detailed series of experiments on rocks of mid-lower crustal composition to determine their rheologies and the role of partial melting in creep. The PIs will also investigate the effects of deformation on the distribution of melt within the rocks. ****